GOALI: A New Method of Technology Transfer with Application to Particulate and Multiphase (SGER)

ABSTRACT CTS-9528220 Funding is requested for developing a new method to transfer of knowledge and technology between university and industry by establishing a Virtual Technology market on Internet, with application in the area of particulate and multiphase flow research. The research will include investigation of user needs, development of system design and implementation, system of maintenance, data collection and analysis. If successful, the proposed project will have a significant impact on developing the communication between academe and industry in the area of particulate and multiphase systems, and establishing a system that will continue to operate after the life of the NSF award. ***